Ecosystem Response to Catastrophic Defoliation of Populus

9510044 Paul Ecosystem Response to Catastrophic Defoliation of Poplars Defoliation of hardwood forests by Gypsy moth caterpillars in the eastern US has caused great concern. Defoliation kills some trees and the leafless trees are unsightly, as well as having the potential to cause environmental pollution because of the frass produced. Poor success of past attempts to stop defoliation, the patchiness of Gypsy moth attacks, and the various rates of recovery of different forests show there are numerous ecosystem responses and controls which are little known. Better knowledge of ecosystem response and recovery could greatly aid in coping with or overcoming catastrophic defoliation. This project will study a well characterized research plot where some trees will be defoliated and others protected using an organic insecticide. Effects on nitrogen cycling, water uptake, and root mycorrhizae will be measured. This project will provide the fundamental information which will help better manage forests affected by this serious pest.